U.S.-Brazil Collaborative Research: Feasibility Studies to Implement Neurocontrollers in Real Time in Brazil

This U.S.-Brazil award will support the collaborative research of Drs. Ganesh K. Venayagamoorthy, Ronald Harley, and Donald C. Wunsch, University of Missouri-Rolla to work with Dr. Nelson Martins, Brazilian Utilities Research Center (CEPEL), and Dr. Djalma M. Falcao, Federal University of Rio de Janeiro (COPPE), in Rio de Janeiro, Brazil. This international team will work to improve the productivity of the existing and future Brazilian power generation and transmission systems using the intelligent control techniques developed by the PIs in an earlier project. CEPEL, the Brazilian national electricity research and development organization, will provide a small-signal stability program for the U.S. team to analyze the Brazilian power system. The Brazilians have already carried out various investigations into finding methods to optimize their power system, and are among world leaders in this regard.

This project has the potential to lead to nonlinear controllers for reducing costs of energy and transmission. The U.S. electric power grid is comparable to the Brazilian grid in terms of size and challenges faced. The results of this work will benefit both the U.S. and Brazil.